ITR: TeraScale Retrieval

ITR-0082655

Newby, Gregory B.

School of Information and Library Science, University
of North Carolina at Chapel Hill

ITR/SW: TeraScale Retrieval

TeraScale Retrieval addresses the scientific investigation of
large-scale information retrieval (IR). TeraScale Retrieval will
facilitate experimentation to advance knowledge of information
retrieval, especially text retrieval, by implementing a software
toolkit for IR research and development. IR systems seek to identify
documents or passages from documents that satisfy a human information
need. Text retrieval is directed at collections of relatively
unstructured documents, such as HTML documents, as well as more
structured documents (e.g., XML). In order to advance scientific
knowledge and improve performance of IR, there is a need for a
software toolkit that enables rapid and practical implementation of
experimental IR systems. The TeraScale Retrieval toolkit will
emphasize large-scale performance with terascale datasets: hundreds of
millions of documents with terabytes of raw data, millions of unique
terms, multiple languages, and potential for quadrillions (petascale)
of sub-documents or document fragments. The toolkit will emphasize
software reuse, high-performance algorithms, and modularity for rapid
prototyping and evaluation. Rather than moving quickly from academic
use to commercialization, TeraScale Retrieval will focus on
experimentation and evaluation to contribute to scientific knowledge
about information seeking and use.